CAREER: Scalable High-Performance Information Servers for Internet-based Multimedia Applications

PI: Prashant Shenoy

The rapid growth of the Internet coupled with advances in computing
and communication technologies has led to the emergence of a variety
of distributed multimedia applications. Realizing such applications
requires the development of large-scale information servers that can
efficiently manage heterogeneity in data characteristics and
application requirements. The main objective of the proposed research
is to develop scalable, high-performance information servers to enable
Internet-based multimedia applications and utilize the results of this
research to enhance the effectiveness of imparting education.

The proposed research will address three key issues: (i) the design of
a scalable, general-purpose multimedia file system based on
network-attached storage, (ii) the design of a coordinated resource
management framework for efficiently managing resources on large
servers, and (iii) the design of a multimedia proxy cache architecture
for efficiently delivering data to applications over wide area
networks. The research methodology for addressing these problems is
eclectic, relying on a combination of analysis, simulation, and
prototype implementation.

The proposed teaching efforts will focus on the development of a
curriculum in multimedia systems and the use of multimedia technology
to improve the effectiveness of distance and classroom education. The
proposed effort will: (i) lead to development of hands-on,
laboratory-based graduate and undergraduate courses in multimedia, and
(ii) explore the use of multimedia technology to develop more
effective pedagogical aids.